CAREER: Assessment, Maintenance, Repair, and Rehabilitation of Historic Structures

9624614 Boothy This is a CAREER Award. The project will develop new repair techniques for historic structures and will develop educational activities that will cultivate a respect for historic buildings, structures, and civil works, and an interest in their maintenance, repair, and rehabilitation. The teaching and research activities will adopt a multidisciplinary perspective, including architectural history, architectural history, architecture, civil/structural engineering, and landscape architectural input. The repair techniques to be studies involve the application of new composite Fiber Reinforced Plastic (FRP) materials, and their application to historic structures is considered a demanding test bed for the more general use of FRP materials in the repair of concrete, steel, and masonry structures. The specific types of structures to be included in the study are masonry and concrete arch bridges, metal truss bridges, mid-20th century slab girder and slab bridges, unreinforced load bearing masonry buildings, and thin-shell reinforced concrete structures. The specific issue to be addressed for these building types include transverse effects in filled arch bridges, load distribution and floor system issues in truss bridges, the hazard of parapets and cornices of URM buildings in Eastern locations in moderate earthquakes, environmental damage to thin-shell concrete structures. The repair techniques to be studied include replacement of critical elements with FRP materials, externally bonded FRP sheet reinforcement, external unbonded FRP reinforcement (banding), and chemical and mechanical prestressing using FRP repair materials. ***